Regulation of Nur77 Gene in Apoptosis

Abstract 9405746 Apoptosis or programmed cell death is a general phenomenon which occurs in the development of many cell types in many organisms. Anti-CD3 antibody (antibody specific for the T-cell receptor complex) can induced apoptosis in mouse T cell hybridomas and immature T cells form the thymus but not in mature T cells from the spleen. We recently showed that a high level of protein and mRNA of an orphan steroid receptor Nur77 correlates with the activation induced apoptosis of mouse T cell hybridomas and immature thymocytes. Introduction of a dominant negative Nur77 into T cell hybridomas protected the cells from activation induced apoptosis. Transcription of Nur77 gene reflects the apoptotic state of the cells; a high level of Nur77 transcription is observed in apoptotic T cell hybridomas, whereas only transient transcription of Nur77 is detected in activated growing T cells. Glucocorticoid can rescue T cell hybridomas from activation induced apoptosis and at the same time, represses the induction of Nur77 gene transcription. This effect is manifested through a calcium ionophore responsive element, which is also essential in maintaining a high level of Nur77 transcription during apoptosis. In this project we plan: (1) To characterize this Nur77 promoter element essential for the sustained transcription during activation induced apoptosis and responsiveness to the glucocorticoid suppressive effect; (2) To perform in vivo studies of the relationship between Nur77 promoter and apoptosis using transgenic mice; (3) To identify protein mediating the Nur77 responsiveness to calcium ionophore and glucocorticoid suppressive effect (protein X) and (4) To assess the function of the protein X identified above in apoptosis and in T Cell development. The findings should significantly enhance our understanding of the apoptosis process at the molecular level. *** Programmed cell death is a critical part of the development of multicellular organisms. An unde rstanding of the genetic regulation of this phenomenon will allow more insight into the developmental process as well as, in a more practical sense, the disease process which results when cells do not die as they should. This work, to characterize a promoter element involved in such regulation and to assess the function of involved genes should contribute to that insight. %%%